Collaborative Research: CS2: Formally Verified and Performance-Optimized Tensor Contraction Sequences in Quantum Many-Body Computations

Tensor contraction sequences are foundational computations in quantum chemistry, quantum physics, and materials science. As these workloads grow in scale and complexity, scientists increasingly rely on optimization techniques — mixed precision, reordering, and fusion — to reduce runtime and memory costs. While effective, these optimizations can introduce subtle numerical errors that are difficult to detect and that erode confidence in scientific results. The project's novelties are a scalable formal verification framework for optimized tensor contraction sequences and a principled method for connecting correctness guarantees directly with performance optimization. The project's impacts are more reliable and reproducible scientific computing, open-source tooling for the broader high-performance computing (HPC) and formal methods communities, and interdisciplinary training opportunities that bridge formal verification, numerical analysis, and high-performance computing.

This project develops a scalable, sound, and precision-aware formal verification framework for reasoning about optimized tensor contraction sequences under interacting optimization strategies. The project creates automated modeling and property-checking methods for mixed-precision tensor contraction sequences using domain-specific satisfiability modulo theories (SMT) encodings in quantifier-free floating point (QF_FP), automated formula generation, and counterexample-guided abstraction refinement. It extends verification to contraction-order optimization and fusion through incremental SMT solving with solver-state reuse, portfolio-based solving, and equality-saturation methods that preserve tight numerical bounds. The project further integrates verification into multi-objective design space exploration, using interaction-aware analysis and graph-based performance–error optimization to identify Pareto-optimal implementations across FLOP count, memory usage, and verified numerical error. The expected result is a practical methodology for discovering tensor contraction implementations that are both high-performance and provably correct for mission-critical scientific workloads.